Materials Technology Subcommittee (MatTec) Publication: The Federal Program in Materials Science and Technology by the NSTC Committee on Civilian Industrial Technology

9523568 Schneider The National Science Foundation is participating in the preparation and publication of a comprehensive report covering the Federal activities in materials research and development. The publication is being prepared by The Materials Technology Subcommittee of the Committee on Civilian Industrial Technology of the National Science and Technology Cmuncil ***